Collaborative Research: I/UCRC for The Center for Surveillance Research

I/UCRC for Surveillance Research

0968910 Ohio State University; Lee Potter
0968922 Wright State University; Brian Rigling

The Center for Surveillance Research (CSR) will develop a mature theory and advanced body-of-knowledge for modern surveillance systems. Ohio State University (OSU) and Wright State University (WSU) are collaborating to establish the proposed center, with OSU as the lead institution.

Surveillance and situational awareness are critical technologies needed to address societal needs of safety and security. Surveillance is used to provide our nation with both international and homeland security, and situational awareness for disaster mitigation and management (e.g. Hurricane Katrina). The main motivation behind the proposed center is to address the theory behind the complex surveillance systems mostly based on sensors and sensor systems. The proposed Center is expected to generate research that significantly advances current surveillance theory and technology and to become a focal point within the surveillance community.

The research advances in surveillance technology developed by CSR will be transitioned to applications of significant societal and national interest. The Center plans to develop and promote a collaborative, focused scientific community in surveillance theory, including short courses, cross departmental and cross-university graduate course offerings, and internships with member organizations. CSR will recruit underrepresented groups, and plans to leverage existing programs such as the Ohio STEM Ability Alliance, the ADVANCE program at OSU, and through collaborations with the Air Force Research Laboratory Sensors Directorate's Minority Leaders Program.